INTEGRATED SENSING: Light Field Compression and Streaming

Light Field Compression and Streaming
In image-based rendering, a large set of conventional 2-D images is used
to render arbitrary views of a 3-D scene. The images capture the light
field around the scene. Since hundreds or thousands of individual images
are required, the data sets are huge, unless they are compressed. A
particularly important application of light field compression is the
streaming of light fields stored on an Internet media server. For
interactive viewing, this requires a framework to decide, which packets of
compressed light field data to send over the network, and at what time.

This project proposes to develop and study new techniques for efficient
light field compression and interactive streaming. For compression, a
novel, elegant disparity-compensated 4-D wavelet transform will be
investigated that avoids the re-sampling problem of previous
disparity-compensated wavelet schemes by incorporating the disparity
compensation into a sequence of lifting steps. For light field streaming,
the proposed work will build on recent advances in rate-distortion
optimized packet scheduling and extend the state-of-the-art to interactive
3-D viewing.

The project is expected to have broad impact for networked 3-D interactive
graphics applications, ranging from distance education and remote
visualization of scientific and medical data sets, to Internet e-commerce
and networked video games.